Asymptotic Solutions to Problems Arising in Computer Science and Information Theory

Knessl
0202815
The investigator, together with colleagues and students,
studies a variety of problems in computer science, information
theory, and applied probability. These have the common feature
that they can be reduced to solving recursion or differential
equations. Sometimes these equations can be solved exactly using
transform methods. Then one can obtain asymptotic information by
expanding the results using methods such as the Laplace or saddle
point methods, the Euler-Maclaurin and Poisson summation
formulas, Watson transformations, etc. Many applied problems of
interest (especially nonlinear ones) cannot be solved exactly.
For these the investigator and colleagues develop appropriate
asymptotic techniques that analyze directly the governing
equations. These are variants of applied mathematics methods,
such as WKB expansions and matched asymptotic expansions. The
latter are especially useful for asymptotic problems that involve
several different scales. The focus is on problems in
combinatorics, data compression, analysis of algorithms, digital
and binary trees, queuing, and coding.
Computers play a progressively greater role in all of our
lives. Important problems in computer science include sorting and
searching, efficient data storage, and data compression. To
decide on what is a good method to search out a given item in
some database, or a good method for storing music or video with
minimal use of memory, it is important to analyze the method or
algorithm. For example, one might ask for the average search
time, or for the likelihood that the search time will be very
long, exceeding some prescribed tolerance. Such questions involve
the "analysis of algorithms." They can frequently be reduced to
solving certain classes of equations. The investigator and
colleagues develop mathematical tools for obtaining solutions of
these equations, either exact ones or accurate approximations.
Approximations are often sufficient, because for example the
searching problem is most important if the total number of items
stored is very large. This "largeness" shows up as a parameter in
the governing equation that facilitates its solution. Related
mathematical problems arise in other important areas such as
molecular biology and communications, and the investigators'
methods and results should thus find applicability to a wide
range of problems.